Coastal Ocean Processes (CoOP) Planning and Management

The Skidaway Institute of Oceanography will continue the scientific planning and management activities of the Coastal Ocean Processes (CoOP) research initiative by maintaining a CoOP planning office. The CoOP program seeks to promote interdisciplinary research in the coastal ocean. Its goal is to obtain a new level of quantitative understanding of the transports, transformations and fates of biologically, chemically, and geologically important matter over the continental margins. CoOP planning is being undertaken by a group of scientists dedicated to organizing large-scale efforts in interdisciplinary coastal ocean basic research. Through a series of workshops and the deliberations of a scientific planning committee, activities are undertaken to define the actual process studies and long-term measurements to be made. The office will communicate information about the CoOP program and the scientific results from CoOP projects by maintaining a CoOP web site and by regularly publishing a newsletter.